REU Site: Electronic Materials

The University of North Texas (UNT) supports a Research Experiences for Undergraduates (REU) Site with the theme of characterization of electronic materials and devices. Twelve students are recruited nationwide every year for a nine-week summer research experience. The REU Site includes faculty from the Physics, Materials Science and Chemistry Departments at UNT; it includes the facilities at the University's Ion Beam Modification Laboratory and the Laboratory for Electronic Materials and Devices. Students participate in a variety of research projects within the areas of surface studies of semiconductors, metals and insulators, electroluminescent polymer composites, and high-electric field gas phase and surface chemistries. Undergraduates also attend scientific seminars and tutorial sessions on research ethics and graduate studies, and participate in visits to semiconductor and high tech industries in the area.